Support for the Division of Environmental Biology (DEB) Doctoral Dissertation Improvement Grant Competition

9531677 Linsky This contract provides technical and administrative support for processing proposals received in the Division of Environmental Biology's Doctoral Dissertation Improvement Grant competition. Supported activities include initial data-entry, panel send-out, and decline data-entry/jacket preparation for proposals received by the 13 October 1995 deadline. Initial data entry will include assembly of file jackets, entry of data into the NSF mainframe computer, and mailing of acknowledgment cards and attachments. Panel send-out will include mailing of appropriate proposals, review forms, panel information, and other pertinent documents to panelists. Decline data-entry/jacket preparation will include entering decline data into the NSF computer, generating decline letters/labels, and assembling decline jackets and PI-packages.